Enabling TIMSS to Meet the Information Needs of the 21st Century

This proposal from Boston College seeks funding to continue the preparation of prototype inquiry task items for the TIMSS 2003 international assessment and to provide a website for teachers that documents students' approaches to responding to the prototype problems. The second set of activities includes a Questionnaire Development Group that would consider the most useful types of contextual information for TIMSS to gather and identify the best vehicle(s) for gathering it. Support for this project ensures that the 2003 international study can continue the planning and staff work necessary for the 2003 TIMMS administration.